Utilization of High Performance Liquid Chromatography in theChemistry Curriculum

This project will incorporate high performance liquid chromatography (HPLC) into the undergraduate chemistry curriculum at Jacksonville University. HPLC instrumentation will be used by students in Separation Chemistry and Advanced Experimental Chemistry, and for undergraduate research projects. In addition, the HPLC system will be used for special projects by students in the Biology and Marine Science Departments. Experiments in the laboratory courses include investigations of operating parameters; use of ultraviolet, refractive index, and electrochemical detectors; and design of a separation system for analysis of a "real world" sample with a complex matrix. Research projects include joint endeavors between the Chemistry and Marine Science Departments to analyze various pollutants in the St. Johns River, a project to develop a more versatile electrochemical detector for liquid chromatography, studies on rearrangements of ephedrine derivatives and oxidation of phospholipids, and isolation of natural products from marine algae. This project will enhance students' appreciation for the capabilities of HPLC, a powerful modern technique, and develop their expertise in the design and application of chromatographic separations.